Course Improvements with a Computer-Interfaced High Per- formance Liquid Chromatograph

This project will improve the instrumental component of the chemistry program at Mount Union College in two areas: high performance liquid chromatography (HPLC), and data acquisition through computer-interfaced instrumentation. A computer-interfaced HPLC system will enable students in organic chemistry, instrumental techniques, and undergraduate research to: (1) gain laboratory experience with the capabilities and applications of HPLC, (2) investigate a wide range of chemical problems which are best studied using HPLC techniques, and (3) work with a computer-interfaced instrument in chemical analysis.